Neodymium Isotope Ratios of Marine Barite: A Tool for Reconstruction of Paleocirculation

9521258 Kastner Kastner will develop Nd isotopes in marine barite to trace fluctuations of water masses. This technique should be useful in understanding the development of water masses and their movement during glacial-interglacial cycles. This research should also lead to an understanding of what depth barite forms in the water, which has been a puzzle for some time. This is important because barite in sediments has been used to indicate the productivity of the surface waters. ***